Plant and Insect Thermal Hysteresis Antifreeze Proteins

Thermal hysteresis producing antifreeze proteins lower the freezing point, but not the melting point, of water by a special mechanism which makes them extremely effective antifreezes. These antifreeze proteins (AFPs) have been reported in many cold blooded animals (polar marine fishes, insects, spiders, centipedes), but they have been best studied in fish where the biochemistry of the AFPs are well understood and certain of the AFP genes have cloned and transferred to other organisms (salmon, plants, bacteria). The AFPs from the overwintering larvae of the beetle Dendroides canadensis are by far the most active AFPs known. The studies outlined in this proposal will allow us to continue our work on these interesting AFPs. Biochemical characterization of the AFP will continue and in addition we will clone the Dendroides AFP gene. The gene will be sequenced, providing the amino acid sequence of the protein and allowing comparisons to the fish AFPs. Also, the function of the AFPs in the membranes of epidermal cells located just under the cuticle of the larvae will be investigated. These studies will further our understanding of the role of AFPs in insect cold tolerance. Because of the high activity of this AFP the results could have applications in cryopreservation, agriculture and frozen food technology.